NSF Young Investigator

9457963 Singh The Principal Investigator plan to develop the area of sub- nanosecond laser ablation related to deposition of diamond-like- carbon thin films. The high power densities and the unique nature of laser-solid-plasma interactions is expected to give rise to smooth diamond-like-carbon films which possess increased diamond- like character and improved adhesion with the substrate. Detailed simulation of the laser-target interactions, insitu analysis of the laser generated plume and property-structure correlationships experiments will be carried out as a part of this investigation. My teaching plan is to develop multi=media instructional materials for a proposed materials synthesis and processing course. %%% The Principal Investigator plan to develop the area of sub- nanosecond laser ablation related to deposition of diamond-like- carbon thin film. The Principal Investigator also plan to develop multimedia instructional materials for a proposed materials synthesis and processing course. ***